Mathematical Sciences: Change-Point Problems for Regression Models

Linear and nonlinear regression models are used for statistical analysis of data from physical, social, and biological sciences as well as engineering and economics. One of the omissions made by the analysts is the question of stability of the regression parameters. For time-ordered data, however, this is a major question.The proposal will develop effective methods to determine the points at which these changes might have occurred. Polynomial,harmonic and,generalized linear and nonlinear models are considered. Bayes estimators for these situations will be developed.